Mathematical Sciences: Coherent Studies in Conditional Probability

The project will study the coherence concepts for a given assessment of likelihood. The whole field of Bayesian analysis is based on the subjective assignments of probabilities to the observed events. Such assignments are only locally coherent. On the other hand the measure theoretic model for probabilities requires countable additivity of the probabilities, a condition that is hard to accept on philosophical grounds. A theory will be developed to address questions of both coherence and mathematical properties such as countable additivity. The theory will be developed based on the concepts of upper and lower exchange rates. The research will have applications to non- Boolean event structures of quantum mechanics necessary to give notions of quantum probability.